Econometric Studies of Dynamic Asset Pricing Relations

There is a large and growing body of literature on the behavior of financial markets because of the economic importance of financial institutions and because studies of these markets can provide basic insights into economic behavior. This project explores in more depth the nature of the volatility in asset prices and the links between this volatility, systematic movements in asset prices, and business cycle variables. This is accomplished by pursuing two distinct and complementary issues. The first issue is the pricing of options in economic environments with fairly general specifications of the stochastic process governing the time series behavior of the underlying stocks. The primary goal of this research is to develop and implement econometric methods for estimating more plausible parameterizations of stock processes and for calculating the values of the associated options. The second issue addressed is the behavior of stock prices in environments with heterogeneously informed traders and imperfect information about the state of the economy. The research explores a particular source of volatility in asset prices and a mechanism by which the links between stock prices and business cycle variables are obscured. The project undertakes an econometric analysis of this model in order to shed new light on the role played by heterogeneity of information in the determination of the time series properties of asset prices. The research contributes rigorous and powerful new econometric methods for studying the behavior of financial assets. This work should help resolve some extremely difficult and important puzzles in financial economics such as the failure of basic economic models to explain periods of extreme volatility in stock market prices.